NSF Young Investigator

9357484 Musolf This NYI award will support the research of a promising and accomplished young investigator. His research will include studies in high-energy nuclear/low-energy elementary particle physics. ***